Spectrally Adaptive System for Microscopic Image Enhancement

This Small Business Innovation Research Phase I project will apply emerging multispectral acousto-optic imaging technology and a specially devised unsupervised learning neural network to enhance microscopic imaging. Various spectral systems employing fluorescence, absorption, and Raman effect are currently in wide use in the microscopic investigation of biological structures. Physical Optics Corporation's R&D Division proposes to develop a novel spectrally adaptive system to enhance image quality and to improve the amount of light collected by an imaging camera as compared with single line filtering. At the same time, the signal-to-noise ratio will be drastically reduced since the system's spectral response will automatically be matched to the spectrum of the object of interest. The proposed system will also reduce the required observation time and the illumination of the sample under test, permitting real-time tracking of dynamic events in the sample without its being damaged by intensive illumination.